Homotopy Theory and Ring Spectra

The goal of this project is to study phenomena relating strictly
commutative ring spectra to the theory of formal groups. One
part of the project is to elucidation of the structure of the
algebra of power operations for Morava E-theory; and in particular a
proof of the conjecture that this power-operation algebra is Koszul.
Another part of the project is the study of E-infinity
orientations of commutative ring spectra, extending the work of Ando,
Hopkins, and the PI on the string orientation of topological modular
forms.

Homotopy theory is a branch of topology; it arose as the study of
certain invariant properties of spaces, namely those left unchanged by
continuous deformations. The most powerful tools for studying such
properties are what are called "cohomology theories". It is a
surprising fact that cohomology theories are illuminated by the theory
of formal groups, which in turn are closely related to problems in
algebraic number theory. The goal of this project is to understand
this relationship.